Type Refinements

SF Proposal 0204248 Type Refinements
Frank Pfenning and Robert Harper

An important aspect of software development and maintenance is to
understand properties of a complete system, its individual
components, and how they interact. There is a wide range of
properties of interest, some concerned only with the input/output
behavior of functions, others concerned with concurrency or
real-time requirements of processes. Upon examining the techniques
for formally specifying, understanding, and verifying program
behavior available today, one notices that they are almost bi-polar.
On the one extreme we find work on proving the correctness of
programs, on the other we find type systems for programming
languages. Both of these have clear shortcomings: program proving
is very expensive, time-consuming, and often infeasible, while
present type systems support only minimal consistency properties of
programs.

The proposed research is intended to help bridge this gap by
designing and implementing more refined type systems that allow rich
classes of program properties to be expressed, yet still be
automatically verified. Through careful, logically motivated design
the research combines the best ideas from abstract interpretation,
automated program analysis, type theory, and verification.